Conference: Molecular Basis of Morphogenesis, June 24-28, 1992, Seattle, Washington

Funds are requested to support the travel of speakers invited to the 51st Annual Symposium of the Society for Developmental Biology, which will be held June 24-28, 1992 at the University of Washington, Seattle, Washington. This year's symposium is organized by Merton Bernfield, current President of the Society, on the subject of "Molecular Basis of Morphogenesis". Each session will focus on a specific organ system as studied in a variety of organisms. Sessions will be on gametogenesis, early organogenesis, on root, flower and leaf morphogenesis, and on organ systems, including cardiovascular, nervous, muscle, and skeletal, epithelial and hemato-lymphopoietic systems. Two minisymposia will precede the main symposium by one day and focus on "Inheritance Mechanisms at Fertilization" and on the "Molecular Embryology and the Study of Lung Development". The meeting is usually of medium size (300-400) registrants) with a single platform session held at a time (25-30) speakers total), and with 60-80 posters presented at three sessions. It is attended by graduate students, postdoctoral fellows, and senior researchers. All speakers have been requested to prepare summaries of their presentations for publication in the annual symposium volume.